Research Experiences for Undergraduates in Chemistry at the University of Puerto Rico

This Chemistry Division award provides support for a Research Experiences for Undergraduates (REU) site in the Chemistry Department, University of Puerto Rico, Rio Piedras, directed by Dr. Ana R. Guadalupe. Ten students will participate each year over the next three years in an 8-week summer program. The students will be exposed to a variety of research topics across all the fields of chemistry, and through a series of orientation lectures, seminars, and workshops they will be introduced to safety practices, ethical issues, modern chemical instrumentation, communication and presentation skills, and use of the internet. Students will be required to report research results at an undergraduate research symposium